Endophytic Nitrogen Fixation by European Beachgrass (Ammophila Arenaria)

Some grasses appear to be able to obtain fixed nitrogen through
symbiotic relations with various bacteria. This project deals with a new
symbiosis involving European beachgrass (Ammophila arenaria) and
nitrogen-fixing bacteria living within the shoots and rhizomes of the host
plant. The primary objective is to determine the extent of nitrogen
fixation (acetylene reduction) activity in this grass in order to confirm
if the rates are significant. Additional objectives are to characterize
the microorganisms involved in the Ammophila symbiosis, to determine the
natural abundance and distribution of these microorganisms, and to
determine if a similar symbiosis might be present in or introduced into
other species of grasses (including crop species). Inoculated and axenic
seedlings will be used in greenhouse and field trials to determine if
Ammophila benefits from its bacterial symbiont. The rates of nitrogen
fixation in the field and the effects of environmental variables will be
measured by acetylene reduction assays. The precise location of
endophytic bacteria will be determined using immunological techniques at
both the light and electron microscope level with existing antibodies.
The bacteria will be characterized with regards to the genes involved with
nitrogen fixation and the effects of oxygen and fixed nitrogen on nitrogen
fixation. Other species of grasses will also be examined for similar
symbioses using acetylene reduction assays and immunolocalization by light
microscopy. The Ammophila symbiosis is promising in that it involves
novel bacterial symbionts with unknown properties and host ranges in a
type of symbiosis previously thought to be largely if not entirely
restricted to tropical grasses. In addition to providing insight into the
phenomenal success of Ammophila on bare sand, these studies might open
ossibilities for endophytic nitrogen fixation by grasses of agricultural
significance.